U.S.-Germany Cooperative Research: Model Theory for Computer Science

The proposed research seeks to derive new results in the theory and application of mathematical logic as applied to problems in computer science. Because many of the classical results of logic are not applicable in the modern context, it is necessary to develop a new theoretical framework. One development would extend the approach and methods of finite model theory beyond finite models. Another development would investigate theoretical foundations for dealing with evolving algebras used to describe structures in computer science that change during the computation process. A third goal of the research is to study decidability and complexity questions relevant to computer science problems.